Crafting Recovery for Advanced Transaction Models and Applications

Concurrency control and recovery are essential components of transaction systems. Whereas much research has gone into concurrency, resulting in a wealth of results integrated into a fairly mature theory, recovery has remained limited to mostly implementation-specific knowledge. This is undesirable for technical and economic reasons: lack of a model of recovery precludes meaningful comparisons between alternatives, in terms of their cost and functionality, and forces the reinvention of basic abstractions and the adoption of ad-hoc approaches. Motivated by these inadequacies and by the need to support recovery for applications such as information retrieval, workflows, and mobile computing this project is developing means for specifying the recovery requirements of an application, identifying the recovery abstractions and protocols needed to realize complex recovery requirements, working toward the modular construction of recovery based on standard abstractions and protocols, developing ways to demonstrate the correctness of this construction, and enumerating the tradeoffs involved in implementing given recovery requirements. All of these facilitate the adjustment of recovery to changing infrastructure support and application requirements. In sum, this project aims to enable the crafting of efficient and correct recovery, in the conventional and advanced transaction realms, thereby influencing the way emerging database applications can be supported.